Dissertation Research: Agrarian Reform and the Renegotia- tion of Women's Roles in Nicaragua

This dissertation research project will examine the changes in the status of women in the context of an ongoing social revolution in Nicaragua. The official propaganda of social revolutions is often to destroy gender biases, but the actual reality is that such biases endure in particular configurations depending on the cultural history of the place. This project will interview officials in agrarian reform and family farmers on the gender division of labor as well as changes in women's roles in general. Methods will include archival research, intensive as well as survey interviewing, and participant observation. This research is important because Central America is a vitally important part of the hemisphere, and understanding of the cultural and social changes going on there can help policy in the US formulate reasonable actions in the face of the revolutionary changes the region is experiencing. In addition, the changes in gender roles in all societies of the world are significant, and understanding of how these changes are affected by local official policy and by local custom is crucial to helping us deal with problems related to gender roles.